Student Travel Support for Interdisciplinary Laser Science Conference ILS-XIII, Long Beach, CA. October 12-17, 1997.

Support is provided for graduate students to attend the Interdisciplinary Laser Science Conference ILS-XIII in Long Beach, California, October 12-17,1997.